Earth Sciences Postdoctoral Research Fellowship Award

The Fellow will use argon methods to date the cessation of ductile deformation in compressional orogens in an attempt to make new contributions toward understanding the evolution of fault systems. Structural geologists have shown that the locus of deformation migrates in the deforming crust through time. During different stages of deformation, different parts of the fault system may be active. Study will be made of micas that nucleate and grow during deformation below the temperature of significant argon loss in order to track this late migration of ductile deformation. The Fellow will work at the University of California at Los Angeles during the tenure of this fellowship.